A Cooperative Endeavor to Publish and Disseminate a Magazine for High School Students who are Gifted in Science and Mathematics

The National Science Teachers Association is working with the National Council of Teachers of Mathematics and the American Association of Physics Teachers to produce a magazine for high school students who are gifted in science and mathematics. The purpose of the magazine is to provide enrichment opportunities in creative thinking and problem solving to attract these students to science and math related careers. The magazine, to be called Quantum, will be patterned after the successful Soviet student magazine, Kvant, which contains physics and mathematics articles and numerous problem-solving activities. According to the Letter of Understanding with the Quantum Bureau in Moscow, the Kvant editors will provide translations of articles and original copies of accompanying artwork. Two editors-in-chief, one for math and one for physics, and an advisory board made up of outstanding science and math teachers and professors will determine the content of Quantum, review all articles for the publication, and solicit articles from U.S. scientists and mathematicians to supplement those from Kvant. The first year of this three-year project will be devoted to the publication of two premiere issues of the magazine, the first in November of 1989 and the second in April of l990. Recipients of the first issue will return a response card evaluating the publication in order to receive the second issue. A marketing survey will be conducted following distribution of the second issue. Sales of subscriptions and advertising space, as well as corporate donations, will help support the cost of producing Quantum.